SWC - Increases Capacity in Science Instruction

The primary focus of this project is to strengthen the Science Department and implement an associate level degree that would provide an educational foundation for students wishing to pursue careers in environmentally sustainable industries. This is not enough as many students entering the college struggle in STEM courses. Therefore we must target the local school systems through a variety of outreach programs to address weakness in these areas. Math literacy is perhaps the greatest problem and will receive special consideration at all levels.
Student preparedness is not only depended on be taught high quality classes, but also requires students to take advance courses in math and science. As these courses are typically electives this project addresses this situation, in addition to increasing the overall interest in STEM.